Tactile Mapping Software for Blind and Visually Impaired Navigation and Science Education

Project Summary
This project aims at providing/developing a model of environmental and thematic feature
perception by blind and visually impaired map users. The project will also provide free, easily
accessible, and easy to use tactile mapping software, downloadable from the Department of
Geography at University of Oregon website. The software will supply teachers with the tools to
create navigation maps for blind and visually impaired orientation and mobility education as well
as create tactile socio-economic maps to be used as instructional materials in science and social
science education. The Research Goals of the project are to:
1. identify the most important environmental objects that are used during navigation,
orientation and mobility by the blind and visually impaired
2. identify how blind and visually impaired map users perceive, categorize and use these
environmental objects
3. based on the findings from goals 1 and 2, create and evaluate a library of symbols that
effectively represent the environmental objects
4. evaluate the threshold of socio-economic data representation/symbolization on tactile
thematic maps
5. create free, easily accessible Tactile Navigation and Socio-economic Mapping software
that incorporates research findings from goals 1, 2, 3,and 4
Intellectual Merit. Research Goals 1-4 will be investigated through the design of empirical
experiments involving human subject volunteers. Researchers and practitioners still do not
understand completely how blind and visually impaired map readers perceive environmental
features and then how those features are best symbolized for map use. While some researchers
have begun to investigate tactile map design, very little has been reported on tactile navigation
map use and environmental perception. Moreover, little to no results has been reported on tactile
thematic maps (neither design nor use). The results from the proposed research will build on the
limited knowledge base and begin to develop a model of understanding of both the environmental
features (important for tactile navigation maps) and thematic value differences (important for
tactile socio-economic maps).
In addition, currently teachers have no automated means to produce navigation and thematic
socio-economic tactile maps for the education of blind and visually students. The Tactile
Navigation and Socio-economic Mapping that will be authored in this proposed project will offer
the ability for teachers and parents to create highly customized navigation and orientation maps
for specific locations such as school, home, church, neighborhood, or playground. Moreover, the
proposed software will allow the mapmakers to insert landmarks that are meaningful to the map
reader. But, one of the most substantial advantages of the proposed software is the additional
ability to create hundreds of US socio-economic tactile maps, products that are flatly unavailable
in any realistic way (without expensive custom-ordering from a tactile production company).
Broader Impacts. The Individuals with Disabilities Education Law guarantees that this group
will receive the materials they need for a free appropriate education. But, they don't have the
socio-economic maps they need to achieve an understanding of the country that guaranteed their
educational rights. The benefits this proposed project will bring to the underrepresented blind
and visually impaired members of society are potentially monumental. The proposed project will
deliver not only theoretical models addressing the understanding map use and environmental
perception, but also the software, a tangible product that will enhance the infrastructure of both
research and education.